Acquisition of Computational Resources for the Development of an Intelligent Information Laboratory

9724286 Hammond, Kristian Swain, Michael University of Chicago Acquisition of Computational Resources for the Development of an Intelligent Information Laboratory The University of Chicago is acquiring application and file servers, workstations and network support to provide a computer-environment for supporting a newly-formed Intelligent Information Laboratory dedicated to the discovery of technology that forms a bridge between people and machines. Research thrusts making up the core technologies of the laboratory are question/answer interfaces to information resources, example-driven preference browsing, image search and classification on the World Wide Web, and clustering documents to aid in information retrieval. The proposed equipment will be available for use by graduate and undergraduate students in research projects. One of the goals of the Intelligent Information Laboratory is to create and support intelligent information tools for the Internet. The University already has helped to get a selection of Chicago's inner city high-schools on-line and to provide support in the areas of digital libraries and educational tool development. The University plans to produce software on the new equipment and modify it for use in the high schools as well as to offer summer programs on Internet strategies for teachers.